Research on Geometric Scattering

Research on Geometric Scattering.
Antonio Sa Barreto
Purdue University.

Abstract

This award will support mathematical research centering on the construction
of scattering operators and the investigation of their properties on compact
smooth manifolds with a complete Riemannian metric. This includes topics in
dynamical scattering theory on asymptotically hyperbolic manifolds and
manifolds with cusps. This allows the scattering matrices to be viewed
as an analogue of Dirichlet to Neumann map associated with an operator on a
manifold. Another project is to prove certain trace formulae for the
spectrum of the Laplacian on asymptotically hyperbolic manifolds and to
investigate the distribution of resonances. Certain other properties
involving the scattering operator on geometrically finite hyperbolic
manifolds will also be studied.

Scattering theory has a long history and was a central topic in mathematical
physics. The mathematical analysis of many aspects of the theory has
undergone significant advances in recent years and this project will
investigate a variety of currently open mathematical questions.